Tuning Nucleopeptide Matrices for Stem Cell Culture

Non-technical summary
Every stem cell therapy under development today, from treatments for spinal cord injury to lab-grown replacement tissue, depends on a hidden ingredient: the material stem cells are grown on. Remarkably, many labs still rely on a gelatinous substance extracted from mouse tumors to culture human stem cells, a decades-old solution that is expensive, inconsistent from batch to batch, and fundamentally incompatible with the scale needed to bring stem cell therapies to patients. This project aims to replace that outdated foundation with a novel, precisely engineered material. The research team is designing a new class of synthetic gels made from small building blocks called nucleopeptides, which combine two chemical components found in DNA and proteins. By combining these components in a single material, the gels can be tuned independently for both physical firmness and biological signaling. This work directly advances the NSF mission to promote the progress of science and supports national priorities in biotechnology development. Stem cell technology is a cornerstone of the emerging bioeconomy, underpinning advances in regenerative medicine, drug discovery, and disease modeling, yet the field's growth is constrained by a lack of dependable, scalable, and chemically defined materials for growing these cells. By establishing design rules for a new material platform that is reproducible, chemically defined, and manufacturable at scale, this project addresses a foundational bottleneck limiting progress across the entire stem cell field. Beyond its scientific contribution, the project will train the next generation of biomaterials researchers, including undergraduate and graduate students who will gain hands-on experience at the intersection of chemistry, engineering, and biology. The team will partner with stem cell scientists to help translate this technology toward real-world use and will contribute to national mentoring efforts through the Society for Biomaterials. The project also includes public outreach using hands-on demonstrations to introduce K-12 students to the science of biomaterials, helping build a workforce pipeline of future scientists and engineers.

Technical Summary
Human induced pluripotent stem cells (hiPSCs) are conventionally propagated on animal-derived extracellular matrix (ECM) proteins that are compositionally undefined, batch-variable, and poorly scalable, a persistent bottleneck for reproducible stem cell research and translation. This project develops a fundamentally new class of self-assembling nucleopeptide hydrogels as chemically defined, xeno-free culture matrices. By coupling peptide self-assembly with nucleobase-driven supramolecular interactions, these materials exploit two orthogonal, independently addressable chemistries within a single fibrous network, a design principle with no direct precedent among current stem cell culture matrices. This orthogonality allows network mechanics and biochemical signaling to be tuned separately. The first aim is to establish sequence–structure–mechanics relationships that govern nucleopeptide self-assembly, enabling predictable tuning of fiber diameter and bulk stiffness across physiologically relevant ranges. The second aim incorporates defined adhesion ligands at controlled densities into the assembled fibrous network without disrupting self-assembly, generating a two-dimensional materials design space spanning mechanics and bioactivity independently. The third aim benchmarks optimized formulations against industry-standard matrices for hiPSC maintenance and directed differentiation, establishing a platform for scaling up iPSC production for translational relevance. Beyond stem cell culture, this materials platform, formed by simple mixing during gelation, offers a generalizable strategy for producing defined, tunable, fibrous matrices for organoid culture, drug discovery, and other in vitro systems currently reliant on ill-defined biological substrates. The project integrates graduate and undergraduate training, a collaboration with the UT San Antonio Stem Cell Core to establish an end-user translation pathway, a mentoring-focused webinar for the Society for Biomaterials Annual Meeting, and K-12 outreach through ExploreUT using hydrogel-based demonstrations of biomaterial properties.